Coherent Control of Quantum-Confined Systems Instrumentation

*** 9871360 Khitrova Cw and femtosecond laser/detector systems will be used in the study of quantum-confined systems, both semiconductor quantum wells and atoms in optical lattices. Attention will be directed toward the similarities between the two systems, in that both are examples of localized structures in periodic potentials. This work is funded through the Major Research Instrumentation Program. ***